CRI: Collaborative Proposal: Developing the Next-Generation Open-Source Network Simulator

Abstract

Program: NSF 04-588 CISE Computing Research Infrastructure
Title: CRI: Acquisition of Research Instrumentation Infrastructure for Next-Generation Broadband Communication Systems

Lead Proposal: CNS-0551686
PI: Henderson, Thomas R.
Institution: University of Washington

Proposal: : CNS-0551378
PI : Riley, George F.
Institution: Georgia Tech Research Corporation - GA Institute of Technology

Proposal: : CNS-0551706
PI : Floyd, Sally
Institution: International Computer Science Institute

Investigators at the University of Washington, the Georgia Institute of Technology and the International Computer Science Institute will re-design, enhance and maintain the Network Simulator to address research and education challenges for the next generation of data networks. Improvements will include a new simulator architecture, new models for wireless networks, provide for software encapsulation, and integration of the tools with virtual network testbeds. The changes will enhance scalability, extensibility, and new application program interfaces that open the simulator to open source networking software. Emulation capability will be improved to allow integration with testbeds.Wireless modules will be rewritten to track advances in wireless networking. Educational scripts will be facilitated in the enhanced version. The Network Simulator is heavily used in research; these improvements will allow it to continue to be a leading resource for